Creativity in Engineering: A Vertical Field Effect Transitor for Study of Ballistic Transport

A vertical field-effect transistor may in principal combine the advantages of both the permeable base transistor and hetrojunction biploar transistor in providing the capability of achieving ballistic action. A device design is developed as a new structure for studying ballistic transport, and modifications to the structure are aimed at limiting parasitics; the results are explored to make practical use of the device possible.